A Software Engineering Teaching Laboratory

This project involves the development of a software engineering teaching laboratory. The laboratory would significantly improve the curriculum of the courses dealing with the design and development of quality software CS456 (Software Engineering), CS516 (System Analysis and Design), and CS530, CS531 (COMPILERS); and the course dealing with the Unix operating system (CS360). A major problem facing the software industry is the generation of quality software. A partial solution to this problem is improvement by Universities in the teaching of software engineering. One of the tools used in industry to assist in software design and Development is computer aided software engineering or CASE tools. In order to adequately instruct students in the use of these tools, it is necessary to give students hands-on experience. The CASE software and hardware requested would enable the department to better instruct undergraduates in the development of quality software. The tools would be used for instruction in CS456 and CS516. In CS530 and CS531 students would apply these tools to assist in the development of a significant software project. In addition, since the requested work stations are Unix based, it would also be possible to give lower division students adequate access, and hence experience with, Unix based systems.